Dissertation Research: Phylogenetic Relationships Among the Holometabolous Orders of Insects Based on DNA Sequence Data

Current phylogenetic hypotheses for orders of insects are seriously restricted by the lack of clear synapomorphies in the morphological data. In particular, relationships among members of the Holometabola are highly controversial and few ordinal relationships are well supported. Through the use of DNA sequence data taken from various loci in the nuclear and mitochondrial genome, I propose to produce a new data set for reevaluation of current phylogenetic hypotheses. The objectives of this research are threefold: (1) to produce a phylogeny for the Holometabola based on DNA sequence data, (2) to test for the monophyly of the Holometabola, and (3) to compare hierarchical patterns among different classes of data i.e. morphology, mitochondrial DNA, and single copy nuclear DNA.